Attaining Ecological Understanding at the Regional Level: The Kuparuk River as a Model Arctic System

This award is part of the Arctic System Science (ARCSS) Program, a U.S. Global Change Program. The research project will focus on integrated research that explores interactions between arctic terrestrial ecosystems and climate. Field research will be related to measurements of tundra to determine the environmental and vegetation correlates of fluxes of water, energy and trace gases especially carbon dioxide and methane. Field studies will measure the movement of carbon dioxide and methane to and from the soil and vegetation in the Arctic. This project is a component of a larger interdisciplinary program known as the ARCSS FLUX Program.